International Symposium on Brittle Matrix Composites (BMC6)

This projects aims at providing financial assistance for 12 leading American specialists in the mechanics and technology of brittle matrix composites for their participation at the next International Brittle Matrix Composites 6 symposium in Poland, October 9-11, 2000. The participation of a representative group of American scientists will considerably enhance the role of the Symposium BMC 6, and stimulate international cooperation. It will also benefit the American research community in keeping a breast of European research and development in ceramic and cementitious composites, and their manufacturing and industrial applications.